Trophic consequences of ocean acidification: Intertidal sea star predators and their grazer prey

The absorption of human-produced carbon dioxide into the world's oceans is altering the chemistry of seawater, including decreasing its pH. Such changes, collectively called "ocean acidification", are expected to influence numerous types of sea creatures. This project examines how shifts in ocean pH affect animal behavior and thus interactions among species. It uses a case study system that involves sea star predators, snail grazers that they eat, and seaweeds consumed by the latter. The rocky-shore habitats where these organisms live have a long history of attention, and new findings from this work will further extend an already-large body of marine ecological knowledge. The project provides support for graduate and undergraduate students, including underrepresented students from a nearby community college. The project underpins the development of a new educational module for local K-12 schools. Findings will moreover be communicated to the public through the use of short film documentaries, as well as through established relationships with policy, management, and industry groups, and contacts with the media.

Ocean acidification is a global-scale perturbation. Most research on the topic, however, has examined effects on single species operating in isolation, leaving interactions among species underexplored. This project confronts this knowledge gap by considering how ocean acidification may shift predator-prey relationships through altered behavior. It targets as a model system sea stars, their gastropod grazer prey, and macoalgae consumed by the latter, via four lines of inquiry. 1) The project examines the functional response of the focal taxa to altered seawater chemistry, using experiments that target up to 16 discrete levels of pH. This experimental design is essential for identifying nonlinearities and tipping points. 2) The project addresses both consumptive and non-consumptive components of direct and indirect species interactions. The capacity of ocean acidification to influence such links is poorly known, and better understanding of this issue is a recognized priority. 3) The project combines controlled laboratory experiments with field trials that exploit tide pools and their unique pH signatures as natural mesocosms. Field tests of ocean acidification effects are relatively rare and are sorely needed. 4) A final research phase expands upon the above three components to address effects of ocean acidification on multiple additional taxa that interact in rocky intertidal systems, to provide a broad database that may have utility for future experiments or modeling.